Nonlinear Equations, Weighted Norm Inequalities, and Best Constants in Harmonic Analysis

ABSTRACT:

The proposed research is concerned with the investigation of certain classes
of nonlinear partial differential and integral equations, and
related weighted norm inequalities. A systematic use will be made of
function spaces intrinsically connected with the problems involved, dyadic
linear and nonlinear models, nonlinear potential theory, quasimetrics on
spaces of homogeneous and nonhomogeneous type (without the doubling
property), and other means of modern analysis. The main goal is to
characterize completely the solvability problem (i.e., find necessary and
matching sufficient conditions), and obtain sharp estimates for solutions of
nonlinear elliptic and parabolic
PDEs with very general coefficients at the lower order terms and data, as
well as for nonlinear integral operators with general kernels.
Linear problems for operators of Schrodinger type with general potentials
(possibly complex valued distributions) will be considered as well. A good
control of the constants involved is an essential part of this study. In
particular, a special attention will be paid to best constant inequalities
which appear in related problems of harmonic analysis and operator theory.

Many questions considered in the proposed research are motivated by
studies in mathematical physics, control theory, and stochastic processes.
As a result, sharp inequalities and criteria of solvability will be found
for equations and operators which describe important phenomena with linear
and nonlinear sources appearing in quantum physics, fluid flow, heat
transfer, and electromagnetism problems.